Moduli Spaces, SU(n) Gauge Theory, and 3-Dimensional Topology

Proposal: DMS-9971578

PI: Hans Boden

Abstract: The investigator proposes a study of invariants of knots, links and
3-manifolds obtained from their representation varieties. In joint
work with Chris Herald, he will derive gauge-theoretic formulas for
new 3-manifold invariants by interpreting representations as flat
connections and perturbing the flatness equations. Corresponding
invariants of knots and links were defined by Frohman, Frohman-Long,
and Frohman-Nicas. In joint work with Andy Nicas he will analyze
some mysterious combinatorial identities arising from computations
for fibered knots. He will also study the extent to which
cut-and-paste methods can be used to compute the new invariants
in joint work with Chris Herald, Paul Kirk, and Eric Klassen.
The principal goal in this line of inquiry is to establish a formula
linking the 3-manifold invariants with the knot and link invariants.
Over surfaces, representation varieties can alternatively be viewed
as moduli spaces of stable bundles, and a study of the geometry and
topology of these moduli spaces is also proposed. This uses methods
from algebraic geometry and will provide an additional perspective
for understanding other naturally occuring spaces, such as
moduli spaces of linkages and GIT quotients of Grassmanians and
flag varieties.

The principal objects studied by geometric topologists are called
manifolds. A manifold is a geometric shape which near any point
looks like Euclidean space. Thus manifolds are all locally the
same, and in order to distinguish one manifold from another,
mathematicians define invariants which encode the manifold's
global properties. To illustrate this point, consider the
following three commonplace objects: a flat sheet of paper, the
surface of a ball, and the surface of a donut. To a near-sighted
insect, each of these objects looks the same. From any given point
the insect can map all nearby points using standard xy coordinates.
The invariant which distinguishes these three shapes is called
the Euler characteristic. It is the number you get by triangulating
the object and counting the number of vertices and triangles
and subtracting the number of edges. For example, the Euler
characteristic of a triangle is simply 3+1-3=1. Performing a
similar count for each of the three surfaces, you get 1
for the sheet of paper, 2 for the surface of a ball, and 0 for
the surface of a donut. This number is called an invariant because
it is independent of the choice of triangulation. One of the most
important problems in low-dimensional topology is that of
distinguishing all 3-dimensional manifolds. Understanding the
global structure of these manifolds will have numerous applications
to physics, chemistry and biology. The investigator proposes to
construct new invariants of 3-manifolds and to develop methods
for computing the invariants. The long-term goal is to use the new
invariants to help in classifying 3-manifolds and knots and links
contained in them.